Conference: Workshop on Recent Developments in Electronic Structure 2026 (ES26)

This award supports participation of 45 graduate students, postdocs, and early-career researchers at the 2026 Workshop on Recent Developments in Electronic Structure Theory, which is held June 22 through June 25, 2026, at the University of Wisconsin - Madison. This is a hybrid meeting with approximately 120 in-person attendees and up to 210 attendees total including the virtual component. The workshop facilitates the exchange of ideas between junior and senior researchers in electronic structure theory and serves as an opportunity for creating new collaborations.

The workshop program focuses on the latest developments in electronic structure theory and computational materials science, exposing opportunities and new directions. The emerging area of incorporating the use quantum computers in electronic structure simulations to engage challenges in the field is among the workshop topics. Quantum computers may make possible accurate simulation of materials that with interesting properties that emerge from electrons that interact strongly with each other. This requires new algorithms and theoretical approaches stimulating workshop discussion. The simulation techniques covered by the workshop are used across a variety of fields including physics, chemistry, and materials science, both in academia and in industry.